Collaborative Research: Developing New Science and Technology for Subglacial Studies of the Whillans Ice Plain and West Antarctic Ice Sheet

Collaborative Research: Developing New Science and Technology for Subglacial Studies of the Whillans Ice Plain and West Antarctic Ice Sheet is supported by the Antarctic Integrated System Science (AISS) program in the Antarctic Sciences Section of the Division of Polar Programs within the Geosciences Directorate of the National Sciences Foundation (NSF). The funds will support the design, construction, and deployment of a roving hot water drill and basal ice coring equipment to be deployed in conjunction with the WISSARD (Whillans Ice Stream Subglacial Access and Research Drilling) project during the 2013/2014 field season. The roving hot water drill will be deployed at up to two locations in each of two sites: in the vicinity of Subglacial Lake Whillans, and at the grounding line where the drainage from Subglacial Lake Whillans empties into the sub-ice shelf cavity. The ice coring equipment will only be used at the grounding line location. All locations are at the edge of the Ross Ice Shelf, connected to the West Antarctic Ice Sheet (WAIS).

Intellectual Merit: The new equipment will be used to augment two on-going projects occurring in the Whillans Ice Stream area, WISSARD, that focuses on understanding the biology, geochemistry, paleogeology, and hydrological/glaciological interactions of the Whillans Subglacial system, and a second project focused on the micro-earthquakes associated with the sticky spots found in the Whillans area. The basal ice corer will add significant data to the WISSARD project, and the roving drill will provide access holes to insert within glacial seismometers that will allow a much better understanding of the micro-earthquakes. The within glacial seismometers will build on the collection of surface seismic data from 2012-13 that are characterized by repeated high frequency events interpreted as basal earthquakes. These earthquake events were not detectable at stations only 20 km away, so obtaining a better understanding of these physical mechanisms will be very useful for understanding basal ice motion and friction.

Broader Impacts: In addition to the contributions to the understanding of ice dynamics mentioned above, future availability of a roving hot water drill system and related coring capabilities will result in increased research opportunities for researchers from a range of disciplines interested in the interface between the base of the ice sheets and the underlying substrate. The project will also support the development of the US's technical expertise in hot water drilling. Finally, the project will provide further funding of the public outreach and education started by the WISSARD project. The WISSARD outreach and education activities have been exceptional to date, and it is expected that additional activities enabled by this new award will be exceptional as well.